Learning from the Mexican Earthquake of September 19, 1985: The Influence of Local Ground Conditions on Damage

This research program considers the effect of underground structures--such as the subway--in amplifying earthquake-induced ground motion in the valley of Mexico City. The effect is modeled analytically and then the results are compared with evidence collected during the Mexican earthquake of September 19,1985.